Probabilistic Learning Neural Networks for Knowledge and Data Acquisition

Artificial neural networks based upon probabilistic models have been recognized as an important approach to learning, information processing, and problem solving. This research seeks to develop a new neural model with an internal probabilistic learning framework. A number of improvements over pervious probabilistic neural networks are devised. First, prior rules can be built into the neural network and used in conjunction with the data for posterior probability density estimation. Second, lateral inhibition following subsumption relationship between patterns is introduced for improving probability estimates. Third, the backpropagation learning heuristic is applied to optimize the interconnection weights and the system parameters. Forth, a minimal description length criterion is added to penalize complex structures for maximizing generalization. Finally, a weight Euclidean distance function is used so that if the distance function involves multiple attributes then each will carry a different weight reflecting the degree of importance that can then be optimized.